Upgrading of the Hydrogeology Graphics Laboratory at JHU

This award will provide for half the funds needed to upgrade the computer facilities that support research in the hydrogeology laboratory at Johns Hopkins University. The additional funds necessary for this acquisition have been committed by the University. This upgrade will make it possible for the PI and his students to pursue their latest generation of groundwater modelling projects which require state-of-the-art computer processors, memory and graphics capabilities. This upgrade will allow the PI and his students to pursue effectively research to be carried out under the recently awarded grant (9117864).